University of Hawaii Oceanographic Instrumentation 2009

University of Hawaii requests funds to purchase oceanographic instrumentation and equipment in support of the multidisciplinary NSF/UNOLS projects to be undertaken on R/V Kilo Moana, a 185’ general purpose research vessel operated as part of the University-National Oceanographic Laboratory System research fleet.
The requests, in order of priority are:

1) Upgrade deep and shallow water multibeam hardware systems and operating software
2) CTD rosette frame
3) 2 m2 MOCNESS system
4) Geodetic GPS and Radar Tide Gauge